Ultraviolet/Visible Spectrophotometer for Undergraduate Chemistry

This project will incorporate into the chemistry program at Pacific University a computer-controlled scanning ultraviolet/visible spectrophotometer with software and accessories necessary to perform a variety of experiments. This instrument will replace an obsolete spectrometer, and will expand substantially the range of experiments possible with the enhanced capabilities of the new equipment. Students will use the instrument for quantitative and qualitative analysis, and for the study of reaction rates, chemical equilibria, and electronic structure of molecules.